1991 Meeting of CODATA Task Group on Biological Macro- molecules, Georgetown University, Washington, D.C., March 13-16, 1991

The Committee on Data for Science and Technology (CODATA) was established in 1966 by the International Council of Scientific Unions (ICSU). Working on an interdisciplinary basis, CODATA seeks to improve the quality, reliability, processing, management, and accessibility of data of importance to science and technology. The CODATA Task Group on Coordination of Protein Sequence Data Banks was established in 1984 to provide a forum to gather information on existing protein databases and to further stimulate international cooperation in the development and operation of such databases. In 1988 the scope of the task group was expanded to include other macromolecular databases and the group was reconstituted as the CODATA Task Group on Biological Macromolecules. Its mission is to promote cooperation among biomolecular databases. To this end, the Task Group meets annually. The 1991 meeting, to be held at Georgetown University, will allow an international gathering of experts to exchange ideas on the meeting's general theme: a rational approach towards the development of infrastructures for the accumulation, integration, and dissemination of biological information. In additional to the general theme, sessions will be dedicated to discussions of NMR databases, structural databases, sequence databases, and emergent databases. A session will also be devoted to planning the continuing activities of the task group.